Specialized Engineering Research Equipment: An LC - Ion Trap Mass Spectrometer for Protein, Peptide and Small Molecule Characterization

The objective of this request is to acquire a bundled High
Performance Liquid Chromatography (HPLC)/LCQ ion trap mass
spectrometer for use in several research projects, and for the
training of students. The new LQC ion trap mass spectrometers are
able to perform amino acid sequencing experiments, DNA sequencing
experiments, mapping of peptide phosphorylation sites and
oligosaccharide analysis, in addition to more traditional small
molecule characterization. The use of this equipment has the
following specific aims: (1) to provide core knowledge and
training to undergraduate and graduate students on the use of LCQ
ion trap mass spectrometry in at least three different
bioengineering applications which are detailed in the specific
aims 2 to 4; (2) to sequence and characterize gene products for
engineering Escherichia coli with enhanced protein secretion via a
proteome science strategy and to make this information web-
accessible; (3) to better define and understand the relationship
between protein glycosylation and environmental conditions in the
insect cell baculovirus expression system to achieve complex
glycosylation of a model protein; and (4) to characterize
polyethylene glycol (PEG)ylated peptides and proteins, and test
hypotheses regarding structure and biodistribution of
macromolecular drugs.